Emotional Competence MDC Training Course

OPM Management Development Center will conduct on-site training to Budget, Finance and Award Management Senior Staff. This course provides practical tools to understand how to effectively communicate with others by understanding yourself and the emotions that exist in all communications. This course will be tailored specifically for BFA Senior Staff.